NSF INCLUDES: Bay Area Regional Collaboration to Expand and Strengthen STEM (RECESS)

The Bay Area Regional Collaboration to Expand and Strengthen STEM (RECESS) is a regional, unified STEM continuum effort from preschool through graduate school and career. RECESS is based on successful collective impact efforts in other fields and employs a participatory action research (PAR) approach to broaden participation in STEM. In the PAR framework, youth and their families will help to define the issues and develop expertise about community needs through a shared research process.

RECESS introduces participatory action research as an innovative element to the collective impact social agency framework. The intent is to determine the extent to which the engagement and involvement of the students and communities targeted can effectively shape the function of the collective impact network of organizations.
During the two year planning phase, RECESS (a) conducts a comprehensive needs assessment and gap analysis; (b) establishes a functioning organization of stakeholders with a common agenda and governance model; and (c) develops a detailed action plan. It is a significant contribution to the body of knowledge on effective and innovative collective impact structures designed to promote STEM education and participation.